Vertical Integration of Research and Education in Mathematical Sciences at Indiana University

VIGRE ABSTRACT
The Department of Mathematics of Indiana University will implement an integrated program of three-year postdoctoral fellowships, three-year graduate traineeships, and undergraduate research assistantships. Graduate trainees and postdoctoral fellows will participate in special mentoring programs, both for teaching and for career development. Graduate trainees will also participate in a special jump-start summer program at the beginning of their traineeships. Undergraduates will pursue research projects guided by faculty. All participants will be involved in activities specifically aimed at enhancing their communication skills in a variety of contexts. The development of interactions among the members of the different groups will be specifically encouraged. The overall goal is to provide broad training at multiple levels for a successful career in the mathematical sciences, all within a context where mathematical research, education, and communication are enhanced.